Operation of Francis Bitter National Magnet Laboratory

The Francis Bitter National Magnet Laboratory is a national facility which provides high magnetic fields to scientists and engineers conducting research in materials science and engineering, physics and condensed matter science, biological science, and chemistry. This four-year award provides support for operation of the user facility, and support for magnet technology development which includes building a 40 tesla hybrid magnet.